Educational Innovation: Exploring a Safe Approach to Software Engineering

9713032 Rice University R. Cartwright CISE Educational Innovation: Exploring A Safe Approach to Software Engineering This CISE Educational Innovation award supports the development of a new undergraduate course sequence in software engineering that focuses on emerging principles of program design and validation applicable to type-safe languages. These courses are built on the high-level design principles incorporated in the new introductory programming sequence at Rice and draw on recent research in algorithmic verification through soft typing and modular program composition. Two courses, targeted at upper-level undergraduates, are being developed. The first course is a foundations course using safe languages that focuses on the principles of program and module design, verification, debugging, and performance tuning and the second is an interdisciplinary studio course that applies the principles of the foundations course to writing innovative networking software. These courses have the potential to make major impact on course work in software engineering in the future.